Integrated Spatial Analysis Laboratory

Two important components are identified as missing from the undergraduate geography curriculum as currently implemented: 1) a means of explicitly integrating the varied substantive material covered in courses dealing with spatial analysis, cartography, remote sensing, and geographic information systems; and 2) access to the computer hardware and software needed to support integrated instruction in these courses. Accordingly, this project provides undergraduate spatial analysis, cartography, remote sensing and geographic information systems. These have been restructured around common linkages and tie courses together. Both theoretical and applied linkages are established, and computer hardware and software are utilized. Also, laboratory exercises cross course boundaries. A new capstone research course, recently added to the curriculum, now provides students with the opportunity to apply spatial analytical techniques to research problems within various sub-fields of geography.